NeTS-Small: Collaborative Research: Network-Wide Configuration Testing and Synthesis

The behavior of a communications network depends on the configuration
of hundreds to thousands of switches, routers, firewalls, and other
devices. For example, a campus network may have as many as 2,000
inter-operating network devices and about one million lines of
configuration; whether the network operates correctly depends for the
most part on the configuration of these devices. Human configuration
errors are the single biggest contributor to network downtime. This
project seeks to develop techniques to make networks easier to manage
by improving both configuration testing and synthesis. Testing takes
as input an existing network configuration and determines whether the
configuration is operating correctly. Synthesis generates
configurations automatically. The project draws on two testing
techniques to make network configurations easier to test: differential
testing and dynamic testing. Differential testing generates test
cases to characterize the run-time behavior of two different programs;
analyzing differences in network-wide configurations can help testing
by allowing test cases to focus on the smaller subset of
configurations that change more frequently. Differential analysis may
make testing more tractable by reducing the amount of configuration to
test. Dynamic testing checks the correctness of a program by
executing it; this execution can be performed in a parallel "shadow"
network, for example. The expected results from this project include
tools for network operators to test and automatically generate
network-wide configurations for both enterprise and ISP networks. The
tools will also be useful in graduate-level courses.